MRI: Thermocline Changes In the Tropical Pacific and Atlantic for the Past 20,000 Years

This MRI will be used in two ways to prepare a full proposal. First, the choice of a mass spectrometer, a necessary piece of equipment, will be investigated. Second, a strong working knowledge of appropriate numerical climate models will be gained by close interaction with personnel at GFDL, Princeton University.